SBIR Phase II: Thermophotovoltaics (TPV) Devices Based on II3-V2 Compounds

This Small Business Innovative Research (SBIR) Phase II project has as its overall objective, the development and demonstration of a thin film, II3V2 based Thermophotovoltaic power generator. The major portion of the effort will be devoted to the further improvement of low cost II3V2 based thin film hertojunction devices grown by organo-metallic chemical vapor deposition (MOCVD). In addition, mono lithic - interconnected modules will be developed as well as the special optical coatings needed for high performance.
At the conclusion of the program, it is planned to demonstrate a fully operational working prototype product. Contact with strategic partners and investors has already begun and will continue to mature during the Phase II program.